CISE CNPq: US-Argentina and US-Chile Collaborative Research on Computer Science and Engineering

EIA-0083083
Fortes, Jose A.
Purdue University

CISE CNPq: US-Argentina and US-Chile Collaborative Research on Computer Science and Engineering

This is an award to support two workshops, each of two days duration in May 2000, in Chile and Argentina. It is anticipated that these workshops will build on the success of the CISE/NSF programs with Mexico and Brazil (CONACyT and CNPq, respectively) to begin creating the collaborations and personal connections necessary to support the possibilities for similar government to government bilateral arrangements with Chile and Argentina.